Seismicity and Tremor in a Submarine Hydrothermal Field

The study will analyze a unique set of seismic data from the Endeavor segment of Juan de Fuca Ridge collected 1991 to determine patterns of seismicity, its correlation to vent activity and to test the hypothesis of two types of earthquake systems on this part of the Ridge. This study will help lead to an understanding of time scales of ridge processes and help plan the future long-term RIDGE observatory in the area to be deployed in 1994-95.